Mathematical Sciences: Southern California Analysis & Partial Differential Equations Seminar

This award will support a series of regional mathematical conferences in Southern California. The meetings will convene twice yearly rotating between University of California campuses and the California Institute of Technology. The research focus of the conferences will be the interface of several complex variables and partial differential equations. Initial funding for these conferences was provided by the organizers' institutions in 1989. Funding will provide travel for speakers outside the geographical area and for graduate students. Others will pay their own expenses. The meetings are scheduled for weekends; the last one attracted about 80 participants